Collaborative Research: Computational and mathematical modeling for efficient design of integrated energy microgenerators

This collaborative project between two mathematicians with expertise in computational and applied mathematics and an engineer with expertise in materials science and scientific computing focuses on the simulation of semiconductors that use light to generate electricity (i.e., optoelectronic devices) in integrated energy micro-generators (IEMGs). IEMGs can power miniature electronic, optical, mechanical, and chemical sensors and actuators embedded in everyday items such as clothing, tents, or car roofs. Such widely deployable devices could broadly affect many areas of life, as they are designed to function not only in outdoor light, but also under indoor and reflected light conditions. Using both theoretical and computational tools, including artificial intelligence (AI), the project specifically targets two fundamental aspects of IEMG design: (i) state-of-the-art light-absorbing materials such as perovskites, and (ii) novel device architectures, particularly the tandem design. The project will also investigate the effects of defects, such as grain boundaries, on the material composition and layout of the semiconductor, with the overarching goal of improving IEMG efficiency and advancing strategic areas such as advanced manufacturing. The project offers training opportunities for Ph.D. students and postdoctoral scholars.

This collaborative project aims to develop rigorous computational methodologies and accompanying software for simulating optoelectronic processes in IEMGs, with a particular focus on probing the effects of grain and grain boundary properties on energy efficiency. Complementing these methods, novel AI-driven approaches will be developed with data generated by the new computational frameworks to enable rapid IEMG design. The computational research will be accompanied by a thorough theoretical analysis of the underlying models. The team will also investigate promising new classes of perovskite IEMGs, including tandem and bifacial configurations. The resulting computational outcomes will help guide fabricators in their choice of materials and configurations, reducing the need for costly experimental verification.